Single Crystal Superconducting Fibers of Bismuth-Calcium- Strontium-Copper-Oxide

The major objective of this research will be the development of an understanding of the growth conditions of single crystal fibers of the new high temperature superconducting material.